STTR Phase I: Havesting Hydrokinetic Energy Using Vortex Induced Vibration and Fish Biomimetics: 1-5 kW System Development

This Small Business Technology Transfer Phase I project will transition an innovative 1-5 kW energy generating system from the University of Michigan (UM) Marine Renewable Energy Laboratory (MRELab) towards the commercial market place. The system is based on a system of cylinders that are made to oscillate by water currents at velocities as low as 1-2 knots (water turbines require 5-7 knots). It is through this mechanism that the converter harvests the hydrokinetic energy.

This project, if successful, will yield a new means of harvesting energy from low velocity currents. Additionally, this system is believed to have fewer impacts on aquatic wildlife than turbine based systems.